SoCS: Collaborative Research: Social Media Enhanced Organizational Sensemaking in Emergency Response

This collaborative research leverages expertise of researchers at Wright State University (IIS-1111182) and Ohio State University (IIS-1111118). Online social networks and always-connected mobile devices have created an immense opportunity that empowers citizens and organizations to communicate and coordinate effectively in the wake of critical events. Specifically, there have been many isolated examples of using Twitter to provide timely and situational information about emergencies to relief organizations, and to conduct ad-hoc coordination. However, there are few attempts that try to understand the full ramifications of using social networks in a more concerted manner for effective organizational sensemaking. This project aims to conduct multidisciplinary research involving computer and social scientists fill this gap.

This project seeks to leverage Twitter posts (tweets) as the primary source of citizen inputs and couple relevant content and network information along with microworld simulations involving human role players to measure effectiveness of various organized sensemaking strategies. To arrive at meaningful summaries of citizen input, tweet content is analyzed using a semantic content analysis by combining natural language techniques that are suitably fused with existing knowledge bases (GeoNames, Wikipedia). Content analysis is further enhanced by innovatively combining it with the dynamic analysis of the twitter network to realize concise and trustworthy information nuggets of potential interest to organizations and citizens. The resulting summaries will be fed to a suitably designed microworld simulation involving human actors to derive realistic settings for modeling disaster situations and typical organizational structures.

This project is expected to have a significant impact in the specific context of disaster and emergency response. However, elements of this research are expected to have much wider utility, for example in the domains of e-commerce, and social reform. From a computational perspective, this project introduces the novel paradigm of people-content-network analysis whose application is not just limited to organized sensemaking. For social scientists, it provides a platform that can be used to assess relative efficacy of various organizational structures using microworld simulations and is expected to provide new insights into the types of social network structures (mix of symmetric and asymmetric) that might be better suitable to propagate information in emergent situations. From an educational standpoint, the majority of funds will be used to train the next generation of interdisciplinary researchers drawn from the computational and social sciences. Research activities will also be integrated with graduate course work. Participation of underrepresented groups will be encouraged. Datasets and software developed as part of this project will be made available to the broader research community via the project page (http://knoesis.org/research/semspc/projects/socs).